A Partnership Approach to Improving Technology and Engineering Education in Eastern Iowa

St. Ambrose University (SAU) and Eastern Iowa Community College District (EICCD) are increasing enrollment and graduation rates in math, science, physics, industrial engineering (IE) and pre-engineering through multiple matriculation pathways into SAU and EICCD's STEM programs. We target underrepresented populations through focused marketing, recruiting, and programs in the local high schools, a summer science camp, and other activities to interest women and minority high school students in STEM careers. Monthly visits to EICCD by our transfer specialist and STEM faculty are increasing community college students' awareness and interest in these fields. Scholarships for SAU and EICCD students alleviate financial concerns, while retention programs with peer and professional mentoring, tutoring, learning communities, and focused group study sessions are helping more STEM majors graduate. Over five years, this project will graduate 118 additional engineers and technicians qualified for positions in local industry or graduate programs with 70 more to graduate after the grant concludes.